High Energy Physics Research

This award will provide funds for three faculty, one senior research associate, one research assistant and three graduate students to continue their research in elementary particle physics. 1. The group has been the originator and major contributor of a Positron Electron Project Time Projection Chamber (TPC) two gamma experiment at the Stanford Linear Accelerator Center (SLAC). The experiment has already provided unique results on charm production in gamma collisions but due to lack of integrated luminosity many aspects of two photon physics have been left untouched so far. With the modified TPC vertex detector and with the higher luminosity expected at SLAC this experiment is well suited for resolving some of the remaining problems (annihilation - B physics). 2. The efforts of the group include also a monopole search using large arrays of proportional chambers with a He gas mixture. The experiment has set nice limits at low beta but will run for another year to improve statistics. 3. A calorimeter R&D has also been started by the group in collaboration with CERN (European Organization for Nuclear Research in Switzerland) and NIKHEF (the Netherlands Institute for High energy Physics in Amsterdam). A new configuration, the "spaghetti" calorimeter, has been well received by the high energy physics community since it appears that radiation damage problems are under control. Results will be important for future detectors at SSC, LEP 200, etc.